Conference: A Plan for Sponsored Attendance of Electrical Engineering Students to Attend IEEE-PES Summer Meeting in Denver, CO., July 28 - August 1, l996

9614202 Chowdhury This is a proposal for financially sponsoring electrical engineering students to attend the 1996 IEEE Power Engineering Society's Summer Meeting. The goal is to give students opportunities to learn about the most recent developments in power system research, engineering, construction, and operation. Through demonstration of the vitality and vigor of the power industry, students can better evaluate its attractiveness as an area of study and its importance to the future of the United States and other countries. ***